DOCTORAL DISSERTATION RESEARCH: A Grammar of Wayana

This project will support final data collection and analysis for a Ph.D.
dissertation consisting of a detailed reference grammar, collection of
texts, and glossary of Wayana, a Cariban language spoken in the rain
forest north of the Amazon river in Brazil, Surinam and French Guiana.
Wayana is virtually undocumented, primarily due the the inaccessibility of
the region where it is spoken. The need for documentation is urgent, as
there are less than a thousand speakers and in several villages Wayana is
not being learned by children. Several grammatical properties of Wayana
are cross-linguistically rare, and one property of the verbal system is
apparently unprecedented; a clear description will provide linguistic
theoreticians and typologists with the opportunity to explain these
properties. Given reliable lexical and grammatical descriptions, Wayana
may finally be placed in the proper branch of the Cariban family,
potentially shedding light on the pre-history of the region. This
description will also serve as a foundation for the elaboration of
literacy materials.